Ocean Planet: A Traveling Exhibition on Ocean Conservation

The Smithsonian Institution's Office of Environmental Awareness, National Museum of Natural History, and Traveling Exhibition Service are developing a major traveling exhibition, Ocean Planet, that will heighten public awareness of the need for ocean conservation. Ocean Planet will show how our lives are connected to the seas, illustrate the rapidly mounting problems threatening coastlines and open oceans, and feature promising efforts to manage oceans and oceanic resources in a sustainable manner. The exhibition and its accompanying programs will introduce the American public to the science underlying ocean conservation, including the fields of biogeochemistry, economics, fisheries biology, geology, marine anthropology, marine biology, and oceanography. Evaluation studies conducted before, during, and after exhibition development will help make the exhibition and programs more responsive to its audience. Following a six-month showing in the National Museum of Natural History, and modifications based on visitor studies, Ocean Planet will visit eight American cities, introducing millions of museum, aquarium, and science center visitors to environmental issues affecting oceans. The exhibition will be accompanied by an extensive program of educational materials and activities outside of the host site. A program of education grants to the venues on the national tour will encourage collaboration with local educational institutions and community groups. We request $951,050 from the National Science Foundation's Informal Science Education Program to Support exhibition research, designs, evaluation, fabrication, and the development of accompanying educational materials. The additional $3,000,000 needed complete the project will be raised from corporate sources, private foundations, and the Smithsonian Institution.